EQUIPMENT GRANTS: Holographic Interferometer System for Heat Transfer and Combustion Studies

Equipment is being acquired for fundamental research in thermal systems and engineering. Specifically, a holographic interferometer will be purchased and used in studies concerning combustion and heat and mass transfer. These topics are important in a variety of technological applications.